Collaborative Research: How Deep Structural Modeling Supports Learning with Big Ideas in Biology

This project addresses the pressing need to more effectively organize STEM (science, technology, engineering, and mathematics) teaching and learning around “big ideas” that run through science disciplines. This need is forcefully advanced by policy leaders including the National Research Council and the College Board. They point out that learning is more effective when students organize and link information within a consistent knowledge framework, which is what big ideas should provide. Unfortunately, finding ways to teach big ideas effectively—so they become useful as knowledge frameworks— is a significant challenge. Deep structure modeling (DSM), the innovation advanced in this project, is designed to meet this challenge in the context of high school biology. In DSM, students learn a big idea as the underlying, or “deep” structure of a set of examples that contain the structure, but with varying outward details. As learners begin to apprehend the deep structure (i.e., the big idea) within the examples, they use the tools and procedures of scientific modeling to express and develop it. According to theories of learning that undergird DSM, the result of this process should be a big idea that is flexible, meaningful, and easy to express, thus providing an ideal framework for making sense of new information learners encounter (i.e., learning with the big idea). To the extent that this explanation is born out in rigorous research tests and within authentic curriculum materials, it contributes important knowledge about how teaching and learning can be organized around big ideas, and not only for deep structural modeling but for other instructional approaches as well.

This project has twin research and prototype development components. Both are taking place in the context of high school biology, in nine classrooms across three districts, supporting up to 610 students. The work focuses on three design features of DSM: (1) embedding model source materials with intuitive, mechanistic ideas; (2) supporting learners to abstract those ideas as a deep structure shared by a set of sources; and (3) representing this deep structure efficiently within the model. In combination, these features support students to understand an abstract, intuitively rich, and efficient knowledge structure that they subsequently use as a framework to interpret, organize, and link disciplinary content. A series of five research studies build on one another to develop knowledge about whether and how the design features bring about these anticipated effects. Earlier studies in the sequence are small-scale classroom experiments randomly assigning students to either deep structural modeling or to parallel, non modeling controls. Measures discriminate for the anticipated effects during learning and on posttests. Later studies use qualitative methods to carefully trace the anticipated effects over time and across topics. As a group, these studies are contributing generalized knowledge of how learners can effectively abstract and represent big ideas and how these ideas can be leveraged as frameworks for learning content with understanding. Two research-tested biology curriculum prototypes are being developed as the studies evolve: a quarter-year DSM biology curriculum centered on energy; and an eighth-year DSM unit centered on natural selection. The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through the research and development of new innovations and approaches. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for the projects.